Molecular Probes of Cation-Arene Interactions

This research focuses on examining the role of the interactions between alkali metal cations being transported through synthetic ion channels, and the arene functionalities that make up the ion channel. Synthetic channels composed of diaza-18-crown-6 subunits connected by spacers of various lengths will be synthesized to define the minimum length needed to function as an ion channel. Different arenes will be attached to the channel opening, and by synthetic modification of the spacers, incorporated into the channel interiors to elucidate the effect of arene-cation interactions on sodium and potassium ion transport within the channel. Graduate and undergraduates students involved in the research will be introduced to modeling an important, natural process by means of model compounds and synthetically tailoring these compounds to examine specific interactions involved in the process. With this award, the Organic and Macromolecular Chemistry Program supports the research and educational activities of Dr. George Gokel of the Department of Molecular Biology and Pharmacology at the Washington University School of Medicine. Dr Gokel will focus his research on the synthesis of macromolecular systems composed of a number of equivalent cyclic subunits connected by molecular spacers that, in toto, are referred to as ion channels. These molecular systems, which mimic naturally occuring biological systems, will be synthetically modified to explore a specific interaction that affects the movement of sodium and potassium ions through the channel. Dr. Gokel's educational activities will involve training graduate and undergraduate students in the syntheses of these model systems, and their characterization as ion conductors.